NSF FF: Planning: Co-Designing an AI-Supported Empathic Communication Platform for High School Classrooms

This FINDERS Foundry award builds healthier communication skills between students and teachers to support stronger relationships and safer classroom environments. While many high school students face stress, conflict, and social pressure, they often lack tools to express themselves clearly or listen with empathy. Teachers require support to address each learner especially while managing busy classrooms. By designing an AI‑supported communication platform, students and learners engage in positive dialogue, learn to reframe conflict, and build understanding. Families, educators, and students shape the design so guidance is practical, respectful, and age‑appropriate. By improving everyday communication, the project creates classrooms where students are engaged and supported, and where they can develop durable skills.

This FINDERS Foundry award develops the design requirements, scenario prompts, prototype interfaces, and evaluation measures for an AI‑supported communication assistant grounded in evidence‑based practices from extant academic research. The project translates academic practices into interactive, branching scenarios to help students and teachers engage in reflective, empowered dialogue. Technical work includes defining interaction logic for AI‑mediated reflection, specifying metrics for usefulness and trust, and capturing alignment with real classroom communication demands. Co‑designed activities with educators and students will produce training materials, scenario libraries, and classroom‑aligned guidance for implementing the tool into instructional routines. Outputs form the conceptual and technical foundation for a scalable platform that supports learning across a variety of secondary learner settings.